Nuclear Magnetic Resonance of Porous Silicon Surfaces

9321224 Gleason Fundamental materials science issues related to the chemical passivation of electronically active states on porous silicon surfaces will be investigated for the first time by H,F, and Si NMR. The approach pursued will allow unique, quantitative, and non-destructive chemical information to be obtained. Effects of anodization conditions, substrate doping and orientation, thermal treatments in a variety of ambients, additional etching, and film growth on top of porous silicon layers will be studied. Photoluminescence measurements will directly link surface composition to optical properties. the goal is to produce stable surfaces with low defect densities and enhanced photoluminescence and electroluminescence properties. %%%% Microscopic spacings in porous silicon may provide unique quantum- confinement effects giving rise to very desirable optoelectronic properties. This material can be readily produced by anodizing single-crystal silicon wafers in concentrated HF, and research of this type has potential to provide the fundamental basis for development of inexpensive optical devices which are compatible and useful for enhancing the capabilities of silicon-based integrated circuitry used in computers, information processing, and display technologies. ***